The IntelliDrive Database Management System

IntelliDrive(SM) is a major U.S. Department of Transportation (U.S. DOT)
initiative of Intelligent Transportation Systems (ITS), aimed at building a
fully connected surface transportation environment via advanced communication
and information technologies. The grand vision is "to provide transformational
safety, mobility, and environmental improvements in surface transportation".

The IntelliDrive initiative envisions a networked environment among
vehicles (V2V), between vehicles and infrastructure components (V2I)
or among vehicles, infrastructure, and wireless hand-held Devices
(e.g., cell phones and PDAs) (V2D) that enables numerous safety
and mobility improvement applications. For example,
in a V2V environment, if the vehicle in front has a malfunctioning
brake light, the following drivers or travelers will be notified
in real-time and take precautionary actions (e.g., slow down or
change lanes); or if roadside sensors detect a patch of ice on the road
at milepost 305, drivers will be notified immediately through V2I or
V2D about the situation in terms what, where, and the degree of
severity, etc.

With respect to improving mobility,
IntelliDrive provides real-time traveler information concerning
traffic conditions, accidents, transit vehicle on-time performance,
parking availability, ride share opportunities, etc.
Thus travelers will be able to make informed decisions about their
travel so to improve the individual and consequently the overall
system efficiency and mobility.

The main objective of this proposal is to develop the framework of a
Database Management System (DBMS) in support of IntelliDrive applications.
This means, among others, a set of services that will answer the questions:
What data is relevant to answer the query? In what nodes does this
data reside? How to access the data on these nodes?

For further information please see the project web site:
www.cs.uic.edu/~wolfson/html/IntelliDrive